A Model Rural Appalachian Partnership to Improve Technology Education through Faculty Enhancement and Curriculum Development Activities

This project has been designed to significantly improve the quality of technological education in Southwest Virginia by increasing the capability of five community colleges to respond to industry- identified needs for advanced manufacturing technology (AMT) education. The project activities will serve as a model for rural appalachian colleges and will be coordinated through the Southwest Virginia Advanced Manufacturing Center, formed through a consortium of five community colleges. The project involves two components: 1) enhancement of faculty skills and knowledge to teach the advanced technologies required by AMT curricular courses via "back- to-practice" internships in industry and attendance at seminars and workshops, and 2) initial development of common AMT curricular courses by cross-disciplinary teams, comprised of faculty from the five participating community colleges, representatives from regional business and industry, and faculty from area high schools and senior institutions.